New Numerical Methods for Hamilton-Jacobi and Liouville Equations; Their Applications to Geometrical Optics, Wave Propagation and Travel-time Tomography

The investigator develops novel and efficient numerical
methods for Hamilton-Jacobi and Liouville equations. These equations arise
from seismic wave propagation, geometrical optics, optimal control,
travel-time tomography, medical imaging, computer vision, and material
sciences. His previous works on computing viscosity solutions and
multivalued solutions of Hamilton-Jacobi equations lead him to develop
more powerful and efficient numerical methods
for solving these equations and incorporate these new methods
into seismic modeling and inversion, as well as other possible
applications. Problems under consideration include continued development
of adaptive eikonal solvers for three-dimensional isotropic and
anisotropic media; fast sweeping methods for stationary Hamilton-Jacobi
equations on unstructured meshes; extending slowness matching methods to
general Hamilton-Jacobi equations for computing multivalued solutions; and
applications of paraxial Liouville equations for geometrical optics, wave
propagation and transmission tomography.
This investigation advances the state-of-the-art in geometrical optics,
wave propagation and seismic travel-time tomography.

These fields and applications are of great strategic value in the US oil
and gas industry, in environmental sciences, and in medical imaging.
Recently, for example, the price of gasoline soared dramatically in the
United States. One way to reduce the cost of production of oil involves
lowering drilling costs by advancing the seismic data processing
techniques that oil companies use to find good drilling sites. The
investigator's new methods expedite routine data processing, provide new
tools for exploration geophysicists to use for ground-breaking
applications, and enable substantial cost savings in seismic explorations,
as the speed and reliability of the underlying computational engine allows
``rig-site'' adjustments to both seismic survey and drilling decisions.